Position Tracking for Motion Correction in MRI

9808434
Price
This proposal is on research which would demonstrate a system whereby the motion of a subject/patient undergoing a magnetic resonance imaging (MRI) examination is monitored in near real-time and the information is fed back to the MRI scanner to produce "motion-free" images. The need for effective motion correction is to make it possible to study important study groups (particularly children) and patients who can not lie still for long imaging sessions. This research will evaluate two methods of motion correction, each method integrates a three dimensional tracking device (POLARIS Optical Position Tracking System-OPTS) with a conventional MR scanner. These methods include: (1) an off-line post-processing method utilizing a Siemens SP-4000 scanner, and (2) an on-line near real-time method utilizing a General Electric Echospeed (5.X) scanner. This proposed research has the potential to produce important advances in MRI technology.
***